Wyoming King Air as a National Facility

Under a Cooperative Agreement, the University of Wyoming will provide management, staffing, system upgrades, testing, and operate and maintain the University of Wyoming King Air and Wyoming Cloud Radar for NSF as a National Facility. Wyoming will deploy the facility 3-5 times per year in support of approved NSF field programs. The number of flight hours will not be limited to the 200 hours in the previous Cooperative Agreement.